Effects of Extracellular Matrix on Cardiac Myofibrillogenesis

This is a Research Opportunities for Women Research Planning Grant, to enable Dr. Hilenski to develop an independent line of study in the area of myofibrillogenesis.